POWRE: Neutrino Induced Pair Production and Its Significance

This POWRE award provides funding that would allow the PI to expand her research activity with various national programs and collaborations at a critical time in her career. This project is aimed at investigating neutrino induced electron-positron production and its astrophysical and laboratory significance. The outcomes of the project research may advance knowledge on the dynamics and physics of photon and W/Z coupled neutrino- nucleus processes and their impact on stellar and laboratory neutrino research. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.